Scientific Computing Research Environments for the Mathematical Sciences

The Department of Engineering Sciences and Applied Mathematics
of Northwestern University propose to purchase a Hewlett Packard
multiprocessor graphics workstation and two X-terminal stations. The
equipment will be used for scientific computation for the following
research projects:

* Numerical simulation of viscous sintering
* Numerical studies of frequency conversion and light propagation
in optical systems
* Complex Structures in Pattern-Forming Systems
* Superlattice wave patterns

The principal investigator is D. Chopp. Co-principal investigators are
G. G. Luther, H. Riecke, and M. Silber. Northwestern University has
agreed to contribute 50% of the cost of the equipment.